Attendance at Annual CBET Grantee Conference, Baltimore, Maryland, June 6 - 8, 2012

CBET 1246788
Alison M. Cupples
Michigan State University

This is a travel grant for the CBET grantee to attend and present at the CBET Grantee Conference in Baltimore, June 6-8, 2012